Collaborative Research: Beyond Standard Model Searches Using Neutrino Telescopes

This grant will support ongoing research using data from the IceCube and KM3NeT kilometer-scale neutrino observatories to search for new physics beyond the Standard Model. By studying the highest-energy neutrinos produced in the universe, the project will explore fundamental questions about the nature of neutrinos, gravity, spacetime, and possible new forces or particles that cannot be studied with current particle accelerators.

The project will develop the first combined IceCube-KM3NeT data set that includes neutrinos of all types from the entire sky. Using advanced data analysis, statistical methods, and artificial intelligence, the team will improve the ability to identify rare neutrino events and search for signs of new physics. The combined data set will also increase sensitivity to neutrinos from the Milky Way and strengthen connections between particle physics, neutrino astronomy, and multimessenger astrophysics. Researchers from the University of Delaware, Harvard University, and the Massachusetts Institute of Technology will build on their established collaboration between the IceCube and KM3NeT experiments. The project will provide training for graduate students and early-career researchers in data science, artificial intelligence, and scientific computing. It will also expand the CosmicWatch educational program by developing space-based cosmic-ray detectors, providing open data for classroom activities, and engaging students through IceCube Masterclasses and public outreach. These efforts will broaden participation in STEM and give students opportunities to engage with cutting-edge research in particle physics and astrophysics.